SGER: Sampling and Isotopic Analysis of Yucatan Groundwater: Impact of Hurricane Isadore

0313847
Perry
This proposal is to evaluate the use of tropical storm precipitation,
especially that from hurricanes, as a natural tracer of groundwater
movement. Precipitation from tropical storms is known to have a special
oxygen and deuterium isotope composition that distinguishes it from
normal precipitation. Because tropical storms also produce many times as
much rain as normal storms, they are capable of adding a large batch or
slug of water to an aquifer during a single event. The objective of this
study is to determine whether that slug of isotopically labeled water
can be traced by stable isotope measurements as it moves through an
aquifer. This research could establish a powerful new technique to study
groundwater in tropical areas where hurricanes are frequent.
It is difficult to plan and set up an experiment suitable for
monitoring a hurricane, and it would be expensive to establish a large
network of monitoring stations purely on the chance that a tropical
storm might occur somewhere within that network. That is what adds an
element of urgency to this proposal. Hurricane Isadore recently passed
over the northern Yucatan Peninsula, an area where the PI has previously
obtained background data on the isotopic composition of the local
groundwater. Northern Yucatan is especially well suited for a trial of
this monitoring technique: its karst aquifer is extremely permeable,
insuring rapid groundwater movement; it has almost no soil that might
impede rapid movement of the hurricane precipitation into the aquifer;
and the aquifer is relatively uncomplicated. Thus, it will be relatively
easy to monitor changes in the composition of water in this aquifer as
the hurricane precipitation moves through.
Samples of groundwater will be collected in three sampling trips
over a period of one year. These will be obtained from municipal wells,
covered karst sinkholes, and piezometers (where available). Students
will be involved in collecting the samples and analyzing the data.
Isotopic analyses will be performed in the stable isotope laboratory of
the Universidad Nacional Autonoma de Mexico.
Intellectual merit of this project will be a better
understanding of the behavior of groundwater, a precious resource, and
the development of a new, non-polluting technique for charting its
movement.
The broader impacts of this activity will include: 1)
development of information on groundwater movement that can lead to
better management and protection of groundwater in the very sensitive
Yucatan aquifer (essential for human health, agricultural productivity,
industrial development, and tourism), 2) establishment of closer
collaboration between Mexican scientists and scientists in the United
States, accomplished by close collaboration in this research, and 3)
education of students in the procedures used to collect meaningful
samples of groundwater and to evaluate the analytical results of this
study.